PIRE: Mapping Evolutionary Process in the Face of Climate Change: An Integrated Approach to Education and Conservation Prioritization in Central Africa

The overarching research goal of this project is to develop an integrated framework for conserving Central African biodiversity under climate change that is both evolutionarily-informed and grounded in the socioeconomic constraints of the region. Central African rainforests represent one of the most important centers of biological diversity in the world. While efforts have been made to prioritize regions for protection, habitat loss continues at an alarming rate severely limiting the ability of species to respond to climate change. This project unites researchers and students from the U.S., Cameroon, Gabon, United Kingdom, Germany, France and the Netherlands around an innovative research program that seeks to identify meaningful conservation measures to mitigate the effects of habitat loss and climate change. The international team will use multi-disciplinary approaches to: 1) map environmentally-associated genomic and phenotypic variation in a broad range of species and assess how this overlaps with patterns of species richness and protected areas; 2) evaluate how evolutionary adaptation, phenotypic plasticity and landscape connectivity might mediate future threats; and 3) develop an integrated prioritization scheme that ranks candidate areas for protection on their evolutionary potential, connectivity, estimated socioeconomic costs, degree of threat and cultural value.

This project involves a broad range of partnerships between U.S., European and African universities, non-governmental organization and governmental agencies. Planned educational activities will promote scientific collaboration and exchange between partners through: 1) undergraduate and graduate educational programs that will partner U.S. and African students and provide cutting-edge training in the biological, environmental and social sciences; 2) annual professional development workshops for early career U.S. and African scientists and advanced graduate students; 3) region-wide research symposia and scientific exchange; 4) bilingual distance-learning programs; and 5) outreach to decision makers through policy workshops. This integrative program aligns well with NSF's Science, Engineering, and Education for Sustainability (SEES) program objectives in developing a workforce of globally engaged young investigators whose coordinated efforts will focus on sustainability science and education. These joint international research and educational efforts will enhance existing collaborations and establish new partnerships that will build a foundation for lasting conservation and sustainability in Central Africa. The project is funded by NSF's Office of International Science and Engineering (OISE).